A Program on General Relativity

DMS-0204721
R. Schoen, H. Bray, J. Isenberg, N. Kapouleas

This award provides partial support for active research mathematicians
to attend a program in general relativity to be held at Stanford
University and the American Institute of Mathematics in the spring quarter
(April 1-June 7) of 2002. The main topic of the conference concerns
aspects of the Cauchy problem for the Einstein equations, and it will
include researchers with expertise in differential geometry, nonlinear
hyperbolic PDE, and relativity theory. There will be approximately 50
total visitors averaging two weeks each during the period of the workshop
together with a few people for longer periods. Focus periods on
specific subtopics will be arranged. The program will include regular
talks, lecture series on particular papers and topics, and open
problem sessions. In addition, we will create a web site for the program
which will give a detailed look at open problems, relevant literature,
background references, and links to preprints and reprints. Further
information will be linked from http://math.stanford.edu and
http://www.aimath.org